Ninth Riviere-Fabes Symposium on Analysis and PDE, April 2006

Ninth Riviere-Fabes Symposium on Analysis and PDE
University of Minnesota, Minneapolis, Mn
April 7-9th, 2006.
Abstract

The proposal is to support the attendance of junior faculty, post-docs and graduate students at this years Riviere-Fabes Symposium at the University of Minnesota.

The symposium will center on lectures by 2 distinguished senior researchers and 3 leading younger researchers on topics of current interest in harmonic analysis and partial differential equations. Past symposia in this series have had considerable influence on the field and it is expected that this will continue.